Lower Mississippi Delta RSI Conference

9454190 Ohme Northeast Louisiana University will host a regional conference focusing on regional strengths, needs and barriers to systemic educational reform of science and mathematics in the Lower Mississippi River Delta region. The dual purpose on the conference is to elicit grassroots involvement in a regional systemic reform effort while creating and expanding an understanding of systemic reform at the local level. ***